U.S.-Poland Physics Research on Scattering of Muonic Hydrogen Atoms on Molecular Targets

The objective of this US-Poland research project between Dr. Robert T. Siegel of the College of William & Mary and Dr. A. Adamczyk of the Institute of Nuclear Physics, Cracow, Poland is to calculate a complete set of those muonic differential cross-sections which are relevant to muon catalyzed fusion and weak interaction physics. The planned calculations are based on the development of numerical methods for estimation of the molecular binding, spin correlations, and electron screening effects in the scattering of muonic hydrogen atoms on hydrogen molecules. The numerical methods for these calculations were developed over many years in Poland. As a result of the project, the researchers plan to complete an altas of the up, ud and ut mesic atom scattering cross sections on the ground and excited states of all the molecular targets of hydrogen isotopes H2, D2, and T2. These results will provide the final information necessary to the detailed analysis of already performed and planned experiments by an experimental collaboration between William & Mary, PSI (Switzerland), IMEP (Austria) and Munich (Germany). This project in physics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.